Japanese Language Award for Robin P. Tan

Tan This award will provide supplementary support to enable Dr. Robin Tan of the University of Wisconsin, Madison, to conduct collaborative research with Dr. Masato Tanaka for 24 months at the National Chemical Laboratory for Industry in Tsukuba, Japan. Tan and Tanaka will utilize Tan's expertise in silicon chemistry to synthesize new organosilicon compounds. With future applications for lithography, new organosilicon compounds can be used to develop new polymeric materials. Tan and Tanaka propose a new method to synthesize organosilicon species by utilizing low valent metal complexes as catalysts. By varying the starting silicon and unsaturated organic compounds, they will be able to form many novel organosilicon compounds which will serve as important starting materials in the synthesis of silicon-based polymeric materials. Dr. Tanaka's experience in silicon-based polymeric materials and the instrumentation available in his laboratory will complement Dr. Tan's experience in synthesizing organometallic compounds. Dr. Tanaka's laboratory is participating in a national Japanese government project on silicon chemicals and silicon-based materials.